Multidimensional Dynamic Problems in Plasticity

This research is concerned with an interdisciplinary team studying multidimensional, time dependent problems arising from plastic deformation of materials, especially granular materials and porous metals. The goals of the project are to develop a detailed numerical simulation of the flow of granular material in an industrial or agricultural silo and of the flow of metal in a forming process and to verify the numerical predications by appropriate experiments. Technologically, progress on these problems should lead to safer and more reliable industrial silos and to greater efficiency in metal forming processes. Scientifically, these problems involve several interesting mathematical issues; ill-posed partial differential equations, homogenization of media with microstructure, and large scientific computations.